Regulation of Water-Stress Protein Synthesis

This project examines the biochemical mechanisms and molecular bases for the ability of cyanobacterial cells (Nostoc commune) to retain functional and structural integrity after repeated exposures to water stress, without involving spore-formation. A recently isolated water-stress glycoprotein, "wsp", will be the subject of more detailed characterization ıthis will include crystallographic analyses!, a protease specific for "wsp" will be purified and characterized, and a transcriptional analysis of wsp formation will be undertaken as part of this project's goals. //